Hispanic Association of Colleges and Universities (HACU) National Internship Program

HACU's National Internship Program is a fully administered and carefully-managed ten-week program that places college students in stimulating and challenging professional and educational roles within the federal sector. Utilizing an intensive summer model, HACU and the sponsoring agencies and departments provide academically qualified students with experience-based learning. Student interns are placed federal offices and laboratories in the Washington, DC metropolitan area and in field sites throughout the United States and Puerto Rico. Student placements are based upon position descriptions provided by supervisors which detail the academic preparation, work experience and special skills required to perform the job. This project is jointly supported by the Office of Multidisciplinary Activities, MPS, and the Office of the Director, Directorate Social, Behavioral and Economic Sciences, Directorate for Computer and Information Science and Engineering, and Directorate for Engineering.